Mathematical Sciences: ImageTech - A Conference on the Mathematics of Imaging and Applications; March 17-20, 1996; Atlanta, Georgia

9530041 Geronimo This award will provide partial support for ImageTech, a Conference on the Mathematics of Imaging and Applications, to be held at the Georgia Institute of Technology from March 17-20, 1996. Support will be provided for graduate students and recent doctoral recipients. The conference will bring together researchers who will present recent advances in the mathematics of imaging, including fractal, wavelet, and other technologies. New developments in image compression and analysis have led to an increased cooperation among researchers in areas such as speech and video compression, image enhancing, target acquisition, and many others. Participants will include researchers from both academia and industry. The program will include both plenary lectures and a technical program, including both invited talks and contributed papers.